Study of Mass Independent Isotopic Compositions of Ru and Mo in Early Earth Rocks

The isotopic compositions of ruthenium and molybdenum in ancient rocks will be measured. So-called mass-independent variations in the isotopic compositions of these elements can reveal the cosmochemical “genetics” of planets; i.e., what they were made from. In the case of Earth, some evidence suggests the genetic signatures of these elements may have changed with time as the planet accreted, indicating that the sources of Earth’s building blocks also changed with time. The objective of this study is to ascertain the level of isotopic heterogeneity present in rocks more than 2.5 billion years old. The isotopic differences in these elements in early-Earth rocks, compared to modern rocks, will provide new insights with regard to the late stage accretionary history of Earth, as well as possible sources of water and organic molecules that were the necessary ingredients for the origin of life. This project will support a postdoctoral associate to conduct state-of-the-art research and will also involve contributions from an undergraduate as part of a senior thesis project.

High-precision isotopic analysis of ruthenium and molybdenum extracted from Archean rocks will be conducted. The specific objective will be to identify and interpret genetic (nucleosynthetic) characteristics of early Earth rocks, particularly with respect to characterizing the building blocks and accretionary sequence of planet Earth. Using proven techniques including nickel-sulphide fire assay pre-concentration, chemical purification and thermal ionization mass spectrometry, Archean rocks from southwestern Greenland, as well as Eoarchean rocks from Nuvvuagittuq (Quebec), and Saglek (Labrador) will be analyzed. Most of these rocks are characterized by positive 182W anomalies, indicative of derivation from primordial mantle domains. Further, we will analyze rocks from three suites of Archean komatiites, also characterized by 182W. The results of this project will provide important information about the accretionary history of Earth. Consequently, it will advance our understanding of the events leading to the creation of a habitable planet, as well as provide clues to the evolution of the mantle during the first 2 billion years of Earth history. Findings will guide dynamical modelers of both the early Solar System evolution and the early mantle. This project will support a postdoctoral associate to conduct state-of-the-art research and will also involve contributions from an undergraduate as part of a senior thesis project.